I/UCRC Self Sustaining Partnership for Research

This award funds the first year of a three-year continuing award under the "Self-Sufficient Partnership for Research" Program and for evaluation studies at North Carolina State University's Industry/University Cooperative Research Center for Aseptic Processing and Packaging Studies. This Center continues to meet the requirements of the Industry/University Cooperative Research Centers Program. Additional funding is provided for a woman undergraduate student to do a study on chlorophyll decomposition. The Program Manager recommends North Carolina State University be awarded $35,000 for the first year of a three-year continuing award; $8,000 is awarded for the first year of a three-year continuing award for an evaluator function. An additional $5,000 is recommended for one year for a woman undergraduate student.